SGER: Text Analysis and Pattern Detection - Phase II

Text Analysis and Pattern Detection - Phase II
Lancaster, Lewis University of California-Berkeley

This project extends the work of IIS-0741556 into new areas. While the purpose remains the exploration of the use of high dimensional visualization to analyze text structure and patterns for scholars in the humanities, This phase of exploratory research will focus on enhancement of the user interface and integration of a statistical analysis toolkit. Also included in the effort are attempts to enhance the functionality and ease-of-use of the user interface. This will be approached by including a context builder for search and retrieval of reference works external to the data repository. In addition, a multi-lingual capability will be explored through collaboration with domestic and international partners. Evaluation plans for the resulting system capabilities will involve numerous beta testing by domain scholars.